NSF Minority Postdoctoral Research Fellowship for FY 2009

This action funds an NSF Minority Postdoctoral Research Fellowship for FY 2009 and is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5). The fellowship supports a research and training plan in a host laboratory for the Fellow who also presents a plan to broaden participation in biology. The title of the research and training plan for this fellowship to Elisa Maldonado is "Investigating the factors that promote bacterial adhesion using engineered surfaces that mimic echinoderm skin." This research will be conducted at Harvard University under the sponsorship of Dr. Joanna Aizenberg.

Bacterial biofilms - thin layers of living cells that coat surfaces - are everywhere in the environment. The initial attachment of bacteria to a surface is a critical stage in biofilm development. However, many organisms such as starfish have surfaces that naturally prevent biofouling. It remains unclear which of the chemical, physical, or mechanical properties of a surface is critical in promoting or preventing bacterial adhesion. It may be that a combination of factors is responsible for the robustness and emergent properties of biofilms. This project is using engineering technology (e.g., novel biomimetic, nanostructured surfaces) that mimic echinoderm skin and present multiple stimuli to determine the interaction of electrical, chemical, physical, and mechanical properties of a surface on bacterial adhesion. This research will simultaneously add to an understanding of the evolution of multicellularity and have applications to the prevention of biofouling. An expected outcome is the development of materials that prevent biofilm formation, applicable to several industries including health, food, and shipping.

Training plans include theoretical and technical training in materials science, nanotechnology, and microbiology. This fellowship increases the participation of underrepresented groups at the postdoctoral and undergraduate level.